International Conference on Nonlinear Partial Differential Equations

This award is for the partial support of a conference in the field of Partial Differential Equations with concentration on three topics: Hamilton-Jacobi PDE, nonlinear elliptic and parabolic equations, related topics in nonlinear functional analysis.